Mathematical Sciences: Analytic Problems on Complete Manifolds

With Tam, the investigator will pursue research in harmonic mapping theory on complete manifolds. Maps with analytic properties up to a boundary will be studied in light of pertinent regularity questions.